Using Phase Analysis to Perform Accurate and Efficient Simulation

Calder, Bradely
CCF-0342522

A crucial problem for architecture and systems research involving program simulation is how to simulate the smallest amount of the program (to gather the results as fast as possible), and still achieve accurate results representative of the complete execution of the program. The goal of this proposal is to address this problem by fully developing techniques using phase analysis to guide efficient and accurate simulation and program analysis.

Our focus is to create new phase analysis techniques to provide very accurate and efficient simulation infrastructure for single program, and multi-threaded workloads. These new phase analysis techniques will also incorporate statistical sampling to provide a minimal set of simulation points with statistical guarantees.